Instrumentation for Training in Bioprocess Technology

This award provides funds for the purchase of equipment to enhance the undergraduate curriculum at Worcester Polytechnic Institute in the areas of cell culture, fermentation, product purification and large-scale production technologies. Monitors and controls for pH and dissolved oxygen, air lift fermenters, glucose/sucrose analyzer, and culture incubators will augment the already existing Fermentation course. Chromatography monitor and control units, additional alternative filtration units, and a centrifuge will augment the already existing Protein Purification and Downstream Processing course. Mixing tanks, a Gaulin Mill, a CEPA centrifuge and large volume liquid chromatography columns will complement the large scale filtration and fermentation equipment already on hand for a new course in Scale-Up. All of the requested equipment will also benefit the research projects required of every senior undergraduate. The grantee is matching the award from non-Federal sources.